Bounded Queries and Approximation

This project studies the computational complexity of finding approximate solutions to NP-optimization problems through an investigation of the structure of complexity classes in the bounded query hierarchy. Many questions about these complexity classes remain open. For example, it is not known whether a polynomial time Turing machine using a linear number of oracle queries to an NP-complete set can recognize more languages than one which uses only log n queries. Recent works have established close connections between NP-approximation problems and the bounded query hierarchy. As a result, there is a direct correspondence between open questions of whether finding an optimum Traveling Salesman tour can be reduced to finding a 2- approximate tour (one that has at most twice the length of the optimum tour). If such a reduction were possible, it would imply that there is no significant difference in the complexity of finding approximate versus optimum solutions for many NP-complete problems. This would drastically alter the present understanding of the nature of NP-completeness. The conjecture motivating this research is that such a reduction does not exist. However, currently, its existence is not known to violate any of the common intractability assumptions (e.g. that P NP or that the Polynomial Hierarchy does not collapse). The goal of this project is to solve many of the outstanding open questions about the bounded query hierarchy.